Quaternary Vegetation in West Africa: Testing Current Models of the Ice-Age Tropics

Some biologists believe that during the last glaciation, tropical forest retreated form marginal parts of its range to warm moist refuge areas not seriously affected by ice-age climatic change. Such refuge areas would be significant to ecologists as well as biogeographers, systematists, anthropologists and climatologists. The idea of unchanged refuges will be tested against a detailed record of vegetation in the warmest and wettest part of equatorial Africa. Many data from tropical highlands indicate a glacial temperature lowering of at least 5 degrees C, comparable to the modern temperature difference between Boston and Labrador. Marine paleoecological data indicate that the tropical ocean cooled by only about 1 degree C. General circulation models of the atmosphere do not reconcile these two disparate estimates. Pollen analysis and grass cuticle analysis of cores already taken from four lakes in Cameroun and Ghana will provide a detailed 30,000-year proxy record for the temperature of West Africa. These data will test the idea that even lowland equatorial Africa was much cooler during the last ice age. The time-course of temperature change will be compared with the modeled temperature consequences of known changes in atmospheric CO2 and the orbit of the earth.